NSFNET Connectivity for Washtenaw Community College

9402839 Cooper The Washtenaw Community College requests support from NSF for training associated with the connection of its campus network to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States This training will include networking conferences and seminars for training support. The training will benefit the faculty research, staff and students.